U.S.-Germany Cooperative Research: Invigorating the Chemistry of Nitriles: An Exploration of Functionalized Grignard Reagents

0203145
Fleming
This award supports Fraser Fleming and a student from Duquesne University in a collaboration with Paul Knochel of the Institute for Organic Chemistry at the University of Munich, Germany. The project will focus on a fundamentally different approach to functionalized Grignard reagents with potential for significantly advancing knowledge of bifunctional reagents. Three new amide-containing Grignard reagents will be examined where deprotonatin and silylation is used to mask and unmask the carbonyl group in situ. The collaborative project provides an excellent opportunity for Fleming and the graduate student to pursue new ideas, cultivate creative solutions to significant problems, and learn new skills. The project also provides an opportunity to establish a long-term relationship with the German group with the possibility of continued exchange of students. The students will be able to experience the smaller, more personal environment of Duquesne University, and then perform research at the larger, research-intensive University of Munich, where they will also garner international experience and contacts.